Matching in Labor Markets and Epidemics

This research encompasses two projects. The first will analyze the simultaneous increase in inequality and in the segregation of high skill workers into separate firms. It appears that workers have been moving from firms like General Motors, which combine workers of different skills, to firms like Microsoft or McDonalds which hire workers of similar skills. A model will be developed to explore this phenomenon. An implication of the model is that either skill-based technological progress or increased skill dispersion can cause high skill workers to segregate into separate firms and reduce wages of low skill workers. The second part of the project will develop and test a model of the spread of AIDS based on matching of sexual partners under various assumptions about the information concerning the risk of infection. In addition, an epidemiological analysis of how behavior affects HIV prevalence will be integrated with an economic analysis of how HIV prevalence affects incentives for individuals behavior.